Achievement and Assessment in School Science: Modeling and Mapping Ability and Performance

This three-year project uses science performance test data collected under the auspices of the California Assessment Program (CAP) to refine and apply new methods for scoring performance tests and for modeling cognitive abilities. After working with data and for modeling cognitive abilities. After working with data already collected, the PI will collaborate with CAP personnel to incorporate features into future performance tests that will facilitate the forms of analysis proposed. The analytical methods to be developed involved modeling underlying abilities in terms of discrete states, rather than continue. Task performance is likewise represented in terms of discrete states, and mappings are derived from ability states to task performance states. Representations and mappings are in terms of partially ordered sets, distributive lattices, and related mathematical structures. Restricted latent class models are used to make inferences about true task performance state and true ability state in the presence of random classification errors.